U.S.-Argentina Cooperative Research in Molecular Analysis of Latent CNS Infections with Neurotropic Strains of Bovine Herpesvirus Type 1 (BHV-1)

This award supports cooperative research between Daniel Rock of the University of Nebraska and A.A. Schudel of the National Institute of Land and Cattle Technology in Buenos Aires, Argentina. This research in molecular virology will characterize the Bovine herpesvirus type-1 involved in infection of the bovine central nervous system. It will identify, through in-situ hybridization, regions of the viral genome that are transcriptionally active in the central nervous system neurons and identify and characterize specific latent infection-related viral genes within these regions. This will lead to knowledge of the interaction of an alpha herpesvirus with neural tissue during latent infection in a natural host and development of strategies for preventing latent infection or preventing its reactivation. Such knowledge is needed for the development of genetically-engineered latency-negative vaccines. This is an ambitious proposal but at modest cost. It is an excellent example of the advantage of collaboration. A unique well-characterized genetic strain of BHV-1 will be made available by the Argentinians to the U.S. PI, whereas he will contribute the techniques and the methodology to be used in the research project. While the practical purpose of studying a potential threat to the cattle industry is important to both countries, the research has promise for understanding herpesvirus latency.